Organization of the 1994 Laser Applications to Chemical Analysis Topical Meeting; Jackson Hole, Wyoming

Abstract CTS-9413130 Hennage A request has been made for funding to help offset the costs of travel of students, junior university faculty, and other faculty in order to attend the 1994 Laser Applications To Chemical Analysis Topical Meeting, to be held March 8-11, 1994 in Jackson Hole, Wyoming. This meeting is sponsored by the Optical Society of America and will include topics in atmospheric and remote sensing, real-time aerosol analysis, biological applications, material processing control and sensors, diagnostics of molecules and atoms on surfaces, molecular identification spectroscopy, combustion and plasma diagnostics, trace-elemental analysis, single atom-molecule detection, laser sources and spectroscopic instrumentation, sensors, and novel diagnostics techniques and concepts.